Theoretical Nuclear Physics

9512428 Chin The scope of this proposal covers the study of the energetics, structures, excitations, impurity distribution and final-state interactions in helium droplets, the thermodynamics, quark condensate, and collective modes in a hot pion gas, the collective excitation and dynamic structure function of finite nuclei, and the development of new algorithms for sampling wavefunctions with cusps. Students in this project will not only learn physics, but will also be trained in the highly useful art of doing quantum Monte Carlo calculations on parallel supercomputers. ***